Transcription Termination by RNA Polymerase III

The long term goals of this project are to understand and describe in detail the macromolecular interactions and biochemical mechanisms mediating transcription termination by RNA polymerase III. While important for understanding the synthesis of a number of important small cellular and viral RNAs, the experiments proposed should also contribute to understanding fundamental biochemical properties shared by all RNA polymerases. Experiments are described that provide a further test of a proposed model for termination by RNA polymerase III, in which transcription termination is dependent of the stability of the RNA-DNA hybrid upstream of the termination signal. Using methods already developed that permit the uncoupling of multiple mechanistic steps in transcription termination by RNA polymerase III, the relationship between polymerase pausing and transcription termination at weak and strong terminators will be analyzed. The identity and determinants of the cis-acting sequence signals for transcription termination by RNA polymerase III will be further investigated with attention given to their role in promoting polymerase pausing and /or release from the DNA template. Protein- DNA cross-linking studies will permit the identification of subunits of RNA polymerase III that interact with the template, and will perhaps allow identification of polymerase-DNA interactions that are altered at the termination signal, relative to those present in a transcription elongation complex. All these experiments will be conducted using purified RNA polymerase III and "tailed" linear DNA templates that permit the analysis of activities associated with the RNA polymerase molecule in the absence of other proteins normally required for accurate and efficient transcription initiation by RNA polymerase III. In some cases, the results obtained will be confirmed by analysis of transcription reactions in oocyte nuclear extracts. %%%% Cells and tissues regulate protein synthesis by several mechanisms including the amount of RNA produced both as messenger RNA which codes for proteins, and other forms of RNA which are components of the protein synthesizing apparatus of the cell (5s RNA and tRNA). This study focusses on the structure and stability of the RNA-DNA hybrid which is formed when RNA polymerase III synthesizes RNA in a complex of the three macromolecules. The structure and the stability of these complexes once understood will yield methods to produce greater quantities of proteins. These studies contribute to biotechnological applications involving specific protein production in cells.